Enhanced Computer Integrated Manufacturing Laboratory.

The quality of undergraduate engineering education at this institution is improved through the acquisition of state-of-the-art Computer Integrated Manufacturing (CIM) equipment. An already existing CIM laboratory is enhanced through the addition of a pneumatic robot, an automated storage and retrieval system, loop conveyor, programmable conveyor, CNC mill, servo robot controler, vision system, bar code reader, computer interfaces and associated software. This enhanced laboratory permits the teaching of CNC machine programming, application of vision in manufacturing, principles of programmable logic controllers, integration of materials handling in manufacturing, local area networking, and human aspects of automated manufacturing. This award is being matched by an equal sum from the grantee.